ILI Neuroscience and Behavior

This proposal is designed to support the development of a new undergraduate laboratory course in neuroscience. The goal of the course will expose students to the field of neuroscience with particular emphasis on the methods of cellular neuroscience. This course will provide laboratory training in neuroscience and behavior as it is practiced in the l990s and it will become one of the focal points for an undergraduate neuroscience and behavior "concentration" within the University. It is our intention to make the proposed laboratory course the center piece of a more extensive research experience for undergraduates. Our long range goal is to create a vertically integrated training enterprise that would attract undergraduates to careers in biology and to neuroscience in particular. The requested equipment will serve the formal laboratory in one semester and will be the center of an honors laboratory and a Research Experience for Undergraduates program in the second semester and during the summer months.